New Approaches to Measuring and Understanding the Effects of Ultraviolet Radiation on Photosynthesis by Antarctic Phytoplankton

Neale 9615342 Increases in ultraviolet-B radiation (UV-B, 280-320) associated with the Antarctic ozone hole have been shown to inhibit the photosynthesis of phytoplankton, but the overall effect on water column production is still a matter of debate and continued investigation. Investigations have also revealed that even at "normal" levels of Antarctic stratospheric ozone, UV-B and UV-A (320-400 nm) appear to have strong effects on water column production. The role of UV in the ecology of phytoplankton primary production has probably been underappreciated in the past and could be particularly important to the estimation of primary production in the presence of vertical mixing. This research focuses on quantifying UV effects on photosynthesis of Antarctic phytoplankton by defining biological weighting functions for UV-inhibition. In the past, techniques were developed to describe photosynthesis as a function of UV and visible irradiance using laboratory cultures. Further experimentation with natural assemblages from McMurdo Station in Antarctica showed that biological weighting functions are strongly related to light history. Most recently, measurements in the open waters of the Southern Ocean confirmed that there is substantial variability in the susceptibility of phytoplankton assemblages to UV. It was also discovered that inhibition of photosynthesis in Antarctic phytoplankton got progressively worse on the time scale of hours, with no evidence of recovery. Even under benign conditions, losses of photosynthetic capability persisted unchanged for several hours. This was in contrast with laboratory cultures and some natural assemblages which quickly attained a steady- state rate of photosynthesis during exposure to UV, reflecting a balance between damage and recovery processes. Slow reversal of UV-induced damage has profound consequences for water-column photosynthesis, especially during vertical mixing. Results to date have been used to model th e influence of UV, ozone depletion and vertical mixing on photosynthesis in Antarctic waters. Data indicate that normal levels of UV can have a significant impact on natural phytoplankton and that the effects can be exacerbated by ozone depletion as well as vertical mixing. Critical questions remain poorly resolved, however, and these are the focus of the present proposal. New theoretical and experimental approaches will be used to investigate UV responses in both the open waters of the Weddell-Scotia confluence and coastal waters near Palmer Station. In particular, measurements will be made of the kinetics of UV inhibition and recovery on time scales ranging from minutes to days. Variability in biological weighting functions between will be calculated for pelagic and coastal phytoplankton in the Southern Ocean. The results will provide absolute estimates of photosynthesis under in situ, as well as under altered, UV irradiance; broaden the range of assemblages for which biological weighting functions have been determined; and clarify how kinetics of inhibition and recovery should be represented in mixed layer models.